Real-Time Adaptive Cancellation of non-Stationary Interference in Radio Astronomy

9987339
Jeffs

Unwanted radio signals block radio astronomers access to important scientific information about the universe. Man's increasing desire to be connected for communication produces a proliferation of man made RF and microwave sources. Prevention measurements through FCC regulation and ITU agreements are effective, but do not provide a viable final solution to an increasing problem.

This proposal is to develop adaptive algorithms for interference cancellation and to evaluate their ability to remove interference from radio telescopes. In addition a hardware/software prototype system, built on the principles developed in the first part of the proposal will be applied to the real-world problem of removing interference caused by Russian Federation Global Navigation Satellite System (GLONASS). This will be demonstrated without manual demonstration.
***